Analytical Laboratory Equipment and Development of Laboratory Computer Network at the Institute of Ecosystem Studies

An atomic absorption spectrometer, a UV-VIS spectrophotometer, a Laboratory Information Management System and a dedicated laboratory network server will be purchased. These will be used in studies of the biogeochemistry of small forested watersheds, atmosphere - forest interactions, aquatic-atmosphere interactions and aquatic nutrient cycling and foodweb dynamics.